International User Services Area

9629998 Schorr This Award covers international travel for one year for the User Services Area Director of the Internet Engineering Task Force (IETF). The User Services Area provides an international forum fro people interested in all levels of user services to identify and initiate projects designed to improve the quality of information available to meetings, to Budapest for the Joint European Networking Conference, and to Bled, Slovenia to participate in the TERENA Information Services and User Support meeting and attend the Network Services Conference. Trip reports are published in the Internet Monthly Report.